Learning and Reconstructing Generative 3D Human Models from Monocular Video

Technical description

The main goal of this project is to automate the construction and
manipulation of very high-level, three-dimensional structural and
appearance representations of humans from un-instrumented monocular
video. This technology would enable a broad spectrum of applications
including video browsing and indexing (content-based access to
digital libraries), entertainment, virtual reality or human-computer
interaction. Our methodology involves an alliance between supervised
and unsupervised statistical modeling and learning methods, non-
linear optimization and sampling techniques and computer vision. The
goal of these procedures is to automate the model construction
process. We aim for compact representations that have the optimal
level of complexity in order to ensure stable and reliable perceptual
inferences.

Broad project significance

The purpose of this research is to derive artificial systems that are
able to recover accurate three-dimensional models of human structure
and appearance from video sequences filmed with a single camera (this
include movies, sports or cultural events like ballet, or home
recorded videos). Human are the prevailing subjects in the existing
video data, which typically records their motions, actions or
expressions, the fine or coarse details of their behavior, the way
they collaborate and communicate. Visualizing or analyzing scenes
with complex life events based on reconstructed human models is an
important problem for the advancement of a variety of technological
fields including digital libraries and archives, video coding,
entertainment, animation and virtual reality, as well as intelligent
human-computer interfaces, protection and security

Human analysis in video is an open research problem facing important
scientific and computational challenges. The proportions of the human
body vary across individuals due to gender, weight, age or race.
Aside from this variability, any single human body has many degrees
of freedom due to articulation and the individual limbs are
deformable due to muscle and clothing. Finally many real-world scenes
involve multiple interacting humans occluded by each other or by
other objects. The scene conditions may also vary due to the camera
motion or lighting changes. These factors make accurate 3d human
models difficult to build and difficult to reconstruct reliably from
flat 2d images. In order to address these challenges, this research
will involve synergies between optimization algorithms, computer
vision and image processing technologies. A key component of our
approach is the use of large scale statistical learning methods in
order to automatically acquire compact models of humans directly from
videos filmed in the real world. In this respect, this research can
lead to fruitful connections with other computer science disciplines
like computer graphics or computer animation. These areas are known
for their highly realistic, but extraordinary complex to construct
models of the physical world, which often require intensive
laboratory design by skilled artists.

URL: http://ttic.uchicago.edu/~crismin/human_models_from_video.html